Increasing Student Participation in Fifth PGAS Conference (PGAS11)

The grant will provide travel support for students to attend a conference on partitioned global address space programming (PGAS). The broader impacts are to provide research experiences to the students.